West Coast Regional Workshop on Architectural Research Needsin Earthquake Hazard Mitigation

This project will organize, convene and report on an NSF regionally- based workshop on architectural research needs in earthquake hazard mitigation. The workshop will review the current state-of-the-art in relation to earthquake hazard mitigation in architectural and nonstructural systems, and relation to broader land-use planning issues and physical urban design issues. Future research needs will be identified and prioritized for these same systems under the goals of the Architectural and Mechanical Systems Program (AMS) program element. The workshop will focus on West-Coast issues.